RI: Medium: Collaborative Research: Optimizing Policies for Service Organizations in Complex Structured Domains

This project studies an important class of complex structured planning
domains called ``service domains'' using simulators and probabilistic
action models. Examples of service domains include optimizing emergency
response in a typical city, scheduling doctors and nurses in a
hospital, administering tasks in a typical office, optimally delivering
products to shops from distribution centers. These domains
share many characteristics such as relational structure, parallel actions,
multi-time-scale decision making, exogenous events, and the need for
human interpretable solutions that make them highly challenging.
The project develops scalable and principled planning algorithms for
service domains through a variety of techniques including a novel
hierarchical framework of multi-time-scale optimization, new
model-free simulation-based planning algorithms, and model-based
planning via composition of first-order decision diagrams. These
techniques are applied to the real-world problem of optimizing
the fire and emergency response in cities through a collaboration
with the fire department of Corvallis, Oregon.

The results of the project include new algorithms and frameworks to solve
service domains, prototype implementations of the algorithms
in the emeregency response domain, and new testbeds of service domains
for research. The broader impact of the work includes more cost-effective
emergency response systems, and development of new research-oriented courses,
tutorials and special workshops on the next generation decision support
systems for service domains.